Surfaces and Thin Films

They will study solid surfaces and thin metal films using LEED, AES, XPS, and angle, energy- and spin-resolved photoemission with the objectives being the determination of atomic arrangements and electronic properties. The three stated objectives in the research are 1) the eptaxial growth and quantitative characterization of metastable phases of the elements; 2) the characterization of the phenomena of relaxation and reconstruction of cystalsurfaces including a systematic study of silicon (111) surfaces and their reaction with group III and V elements; the development of a new computer program for the calculation of LEED intensities for the investigation of complex surface phases that are too complicated for studies with presently available programs.